Orographic Forcing of the Coastal Atmospheric Boundary Layer

9526138 Rogers Coastal mountains form a barrier to the wind field that may affect both the downstream and upstream evolution of the local air flow. Local regions of high or low pressure generated by the coastal zone can become trapped and propagate along the coastline. Energetic, disturbances that exist for between two and six days are of particular interest. These features can cause significant changes in the local weather in the coastal zone, for example, replacing clear skies with clouds and fog, and causing intensification and reversals of the wind field. These systems are well documented, but no studies have characterized their dynamical structure, origin, interaction with the mean boundary layer and the development of the cloud-capped layer that accompanies these events. Accelerations of the flow associated with coastal barriers give rise to strong wind forcing of the coastal ocean and rapid variations in the speed of the low level air flow. These orographically-forced flows have a significant effect on the exchange of heat, moisture, momentum and trace constituents between the ocean and the atmosphere. Since these flows are constrained by the topography, they are often stationary and persistent, consistently affecting a particular area of the coastline. While the basic structure of these features is known, they have been documented on only a few occasions and no systematic study has been directed specifically to identifying the dynamics of these features and their interactions with the thermal circulation that is also a significant mesoscale feature of the summer-time California coastal zone. This work will focus on in situ measurements of the along shore and across shore structure of the boundary layer using aircraft and surface based measurements. Aircraft instruments will provide direct measurements of the mean and turbulent structure of the coastal atmosphere with coincident lidar measurements of the deformation of the marine bounda ry layer inversion and in situ cloud microphysical measurements of coastal clouds and aerosols. An important result will be the ability to resolve the temporal and spatial scales that dominate the variability of the mesoscale wind field along parts of the California coast, which may have a significant impact of mesoscale forecasting and numerical modeling in complex terrain. ***